National Ecological Observatory Network (NEON) Workshop and Information Technological Frontiers Symposium at the San Diego Supercomputer Center

Arzberger and Fountain

The San Diego Supercomputer Center has proposed to conduct a planning workshop to develop the interdisciplinary capability and technological breadth of NEON, the National Ecological Observatory Network. The workshop will be held from 9-12 March 2000. Workshop facilitators include Dr. Martyn Caldwell of Utah State University, Dr. Bruce Hayden of the University of Virginia, and Dr. Jim Beach of the University of Kansas. The goals of the workshop are to:

determine the types of infrastructure needed for observatories in NEON,

determine the types of infrastructure needed for the network of observatories in NEON (including communication and computational support),

address management issues for NEON infrastructure,

discuss coordination of research within and among NEON sites, and

provide advice on the challenges of overcoming the sociological and institutional barriers associated with collaborative research that is multi-institution, large-scale, and broadly interdisciplinary.

Reports by breakout groups and a synthesis of the emerging technologies symposium will be broadcast on the world wide web. The workshop will result in a report submitted to NSF.